Galois Representations and Modular Forms

A big theme in number theory in the last 50 years has been the relationship
between automorphic forms, Galois representations and objects from algebraic
geometry. There is an extensive web of extraordinary conjectures (for instance
the Artin conjecture, the Shimura-Taniyama conjecture, Langlands' conjectures,
Serre's conjecture and the Fontaine-Mazur conjecture) linking these
three seemingly very different subjects (which relate to analysis, algebra and
geometry respectively). Progress on these conjectures is currently very exciting.
Under previous NSF grants the PI, with various collaborators, completed
the proof of the Shimura-Taniyama conjecture; proved the local Langlands
conjecture for GL(n) over a p-adic field; proved the Sato-Tate conjecture for
elliptic curves over totally real fields; proved the first general automorphy lifting
theorems and potential automorphy theorems for Galois representations
of arbitrary dimension; and proved that the L-function of any polarized, regular,
irreducible motive over a CM field has meromorphic continuation to the
whole complex plane and satisfies the expected functional equation. The PI
proposes to continue to improve the currently available automorphy lifting
and potential automorphy theorems; to relate the cohomology of Rapoport-
Zink spaces to the local Langlands conjecture for groups other than GL(n); with
Kevin Buzzard and Joe Rabinoff to prove the Artin conjecture for odd degree
two representations of the Galois group of a totally real field in which 5 splits
completely; and to think about more speculative problems relating Galois representations and automorphic forms, for instance how to understand the case of very degenerate Hodge-Tate numbers/infinitesimal character. In addition the PI will continue his work with post-docs and, particularly, with graduate students.

This circle of ideas is the one that led to Andrew Wiles' celebrated proof of
Fermat's last theorem after over 300 years. They fall into the general area of
arithmetic geometry - a subject that blends two of the oldest areas of mathematics:
number theory and geometry. This combination has proved extraordinarily
fruitful. Among its many consequences are new error correcting codes.
Such codes are essential for both modern computers (hard disks) and compact
disks.